Research Experiences for Undergraduates in Civil Engineering

9322063 Gerstle This Research Experiences for Undergraduates project will provide undergraduate students primarily from the Rocky Mountain region and the Southwestern United States the opportunity to participate in a comprehensive research experience in civil engineering during the summers of 1993 through 1996. ***